Mathematical Sciences: Percolation, Particle Systems, and Other Stochastic Processes

There are a number of problems to be studied. Three problems concern percolation. The cluster size distribution and closely related aspects of the geometry of finite clusters will be examined for a continuous model in which the probability of a bond being occupied is a function of its length; the spread of th distribution of the passage time in first passage percolation will be studied; and finite clusters in the Fortuin-Kastelyn random cluster model will be examined and the results applied to the Ising model conditioned to be less magnetized thatn is typical. Research in interacting particle systems and cellular automata will center around four model which have applications in physics and biology: a catalytic surface reaction model, a threshold forest fire model, a cancellative system with mass extinction, and a model for the even-odd theory of food chains. Results to be sought concern the asymptotic behavior of these model and phase transitions. The investigator will study systems in which small-scale randomness produces large-scale phenomena which are essentially nonrandom. Such systems have long been an object of study in mathematical physics, and more recently also in biology. A standard physical example is a magnet, in which individual iron atoms have randomly aligned magnetic poles, with a slight tendency for nearby atoms to have parallel alignments. Depending on the temperature, this tendency may or may not be reflected in a large-scale nonrandom amount of magnetization of the chunk of iron.